U.S.-Romania Physics Research on Weak Interaction Processes in Nuclei

INT 0070789
Vary

This U.S.-Romania research project between James Vary of Iowa State University and Sabin Stoica of the Romanian National Institute for Physics and Nuclear Engineering will work toward development of a precise theoretical framework for weak interaction processes in nuclei by combining the theory of effective operators with advanced many-body techniques. The goal is to improve shell-model (Sh.M) and quasiparticle random phase approximation (QRPA) calculations and apply them to studies of weak interactions occurring in the nuclei, including double-beta decay, conventional beta decay, and hadronic parity-violation. To do this the U.S.-Romanian team will employ both proton-neutron QRPA and Sh.M methods with realistic, microscopic, effective Hamiltonians and then analyze the resulting nuclear matrix elements (NME). Results are expected to improve our understanding of nuclear structure and benefit fundamental research related to astrophysics and cosmology.

This research in theoretical physics fulfills the program objective of advancing scientific knowledge by enabling experts in the United States and Central Europe to combine complementary talents and share research resources in areas of strong mutual interest and competence.